Thermophilic Systems for Production of Ethanol and Other Neutral Products from Lignocellulose

This research is directed toward using thermophilic bacteria to convert lignocellulosic materials into ethanol and other neutral products. Two tasks are considered, each based on original analyses and/or concepts. These tasks address critical factors which limit the application of thermophilic solvent production, and are also expected to contribute to fundamental understanding relevant to several topics in biochemical engineering and applied microbiology and biochemistry. The first task uses continuous pure cultures to investigate the influence of product manipulation on end product metabolism in order to evaluate both the applied potential of this approach and also theoretical models for metabolic regulation. The second task extends experimental and theoretical investigation of product manipulation to undefined mixed cultures. Biological conversion of lignocellulose to ethanol and other solvents is a versatile process which could be used in various applications to replace petroleum. The amount of lignocellulose available in the U.S. is much greater than the amounts of corn and other agricultural crops, and is sufficiently large that transportation fuel requirements could be met from this resource. Thermophilic bacteria are attractive for solvent production because they can ferment all of the carbohydrate components in biomass. This feature has a very favorable impact on process economics, and distinguishes thermophiles from other biological agents which have been considered for solvent production. This research addresses one of the main limitations of thermophiles for solvent production: The production of organic acids. Biochemical considerations suggest modifications of the fermentor environment to favor solvent production, and bioreactor designs to achieve these modifications. Experiments to investigate effects of environmental factors on solvent production will be carried out with both pure and undefined mixed cultures. The study of solvent production by undefined mixed cultures could result in a new process having many of the advantages of anaerobic digestion but producing solvents in lieu of less valuable methane. Dilute-acid pretreated hardwood and xylose will be the major substrates studied.